Transcription of Yeast Cell-Type-Specific Genes

Mating type control in the yeast S. cerevisiae provide a powerful genetic model to understand both hormone/receptor/G protein signal transduction and the transcriptional regulation that underlies cell type specificity. Our work has shown that yeast STE12 protein plays a central role in both of these processes by binding to the DNA sequence that mediates pheromone (hormone) induction in yeast. STE12 may thus be the ultimate effector at the DNA level of the signal transduction pathway triggered by the binding of pheromone. Our long term objective is to understand the role of STE12 in cell-type-specific transcription and its potential modification, in response to pheromone, which allows it to increase the level of transcription. We plan: 1) a mutational analysis of STE12 to determine which amino acid residues are critical for binding to DNA, for activating transcription and for responding to pheromone; 2) purification of STE12 and characterization of its binding to DNA and its interactions with other transcription factors; 3) analysis of STE12 after activation by pheromone; and 4) genetic approaches to identify other proteins with which STE12 acts. Given the striking conservation between yeast and mammalian transcription processes, and the central role of transcriptional activators in cellular differentiation, transformation, and viral specificity, our studies on this yeast protein should have broad implications for understanding the control of gene expression in animal cells. The work in this proposal will increase our understanding of the mechanisms by which cells turn on specific genes in response to signals from their external environment.